Hydrowinch and Automated Probe Sampling System for an Undergraduate Ocean Studies Laboratory Aboard a Six Campus Consortium Vessel

A multi-channeled, electromagnetic cable winch with automated multi- parameter probe sensors will be used by undergraduate students from six southern California state universities aboard the Southern California Ocean Studies Consortium teaching vessel. With this winch and instrumentation the laboratory exercises will expose students to the application of current principles and analytical techniques. The equipment makes possible a continuity in the laboratory exercises by eliminating the need to return to the home campus for data analyses. This provides the students with a much needed "hands on" experience with automated instrumentation. This type of experience with this equipment in the "at sea" laboratory enhances the preparation of prospective graduates for future professional work.